Introduction to Laser Physics at the Undergraduate Level

This project seeks funds to purchase equipment which will permit the introduction of laser physics at an early stage of the undergraduate physics curriculum. The principal lasers to be utilized are He/Ne, dye and diode lasers. //